Cognitive and neural mechanisms of syntactic processing

Human language is one of the most complex cognitive systems studied by science, yet there remains substantial debate regarding how linguistic knowledge is represented in the brain. Some theories propose that language is organized around abstract grammatical structures that operate independently of experience, whereas other theories argue that language emerges from patterns of use and the statistical properties of linguistic input. Distinguishing between these accounts has proven difficult because both often make similar predictions for healthy language users. This project addresses this longstanding debate by examining language processing under conditions that provide a unique opportunity to test competing theories of linguistic representation. The findings will advance understanding of the cognitive and neural foundations of human language and provide training opportunities for students in linguistics, cognitive science, and neuroscience.

The project combines behavioral experimentation, neuroimaging, and computational modeling to determine whether patterns of language processing are better predicted by abstract grammatical relationships or by experience-based properties such as frequency and exposure. The research examines how linguistic relationships among language systems influence patterns of language processing when the neural mechanisms supporting language are altered. By comparing predictions derived from formal linguistic theories and usage-based accounts, the project will identify which aspects of language organization are most strongly associated with observed processing patterns. The results will provide new evidence concerning how linguistic knowledge is represented in the brain and will contribute to broader theories of human language intelligence.